Connecting NACSE - the Northwest's Metacenter Regional Alliance - to the vBNS

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for an DS3 ATM connection to the Very High Performance Backbone Network Service (vBNS). Applications include: - NACSE research on interactive, Web-based techniques for enhancing HPC training and access - NERO research on RSVP, MARS, IP over ATM and QoS issues Collaborating with: - the Cornell Theory Center, the San Diego Supercomputer Center, and the Pittsburgh Supercomputing Center.